PYI: Architectures and Algorithms for Autonomous Intelligent Systems

This Presidential Young Investigator Award will support research in optimal decision making under resource constraints (the theory of bounded rationality) and studies of bias control for effective concept induction in probabilistic domains. A special thrust is the incorporation of existing background knowledge in neural- network learning systems. Dr. Russell will apply this work to robotic manipulator learning, path planning, and control architectures for simulated and physical robotic systems. His research in bounded rationality and utility theory may have additional applications in other areas of decision making.